Kinetic City After School

0000607
HIRSHON

The American Association for the Advancement of Science (AAAS) is developing, producing and testing a pilot phase for an after school program designed to engage children 9-12 years old in recreational science education. The materials will provide a structured yet flexible daily experience aligned with age-appropriate learning goals. Individuals and teams of children engage in the program by registering on-line, following the developing story line, and performing science activities on and off line. The activities will remain available on the Internet for continued use by after school programs, home schools, small teams of children and individuals working independently.